CSR---PDOS: Liberating Personal Computing from Hardware

The goal of this research is to remove the tight binding of user
state to specific computing hardware. This tight binding arose
at the birth of personal computing nearly three decades ago, and
has continued unchanged since that time. It has many negative
consequences: hardware upgrades are painful, disaster recovery is
complex, and total cost of ownership is high. It also forces
mobile computing into a paradigm of each user carrying personal
hardware, rather than traveling hands-free and taking advantage
of pervasive hardware.

The proposed research aims for a new vision of on-demand personal
computing called "Internet Suspend/Resume (ISR)" that exploits
the ubiquitous presence of the Internet. This research explores
issues at the intersection of two well-established technologies:
virtual machine (VM) technology and distributed file system
technology. By layering a VM on a distributed file system that
performs aggressive client caching, a user's entire personal
computing environment (operating system, applications and user
files) can be accurately and safely delivered anywhere on the
Internet.

The proposed research spans operating systems, distributed
systems, mobile and pervasive computing, and security and
privacy. Its has three major thrusts: (a) Coping with Huge VM
State, (b) Preserving Privacy of VM State, and (c) Dynamically Varying
Client Thickness. The work in each thrust includes conceptual
development of novel techniques and algorithms, as well as their
implementation and experimental validation in the context of a
prototype. This prototype will be disseminated in open source
form, for use by other researchers and by industry.